Risk Perception, Decisions, and Cross-Cultural Issues

This research planning grant addresses the complex relationships between ethnicity and risk perceptions. Cross-cultural research on models of risk perception is vital to the validity and generalizability of all research on risk perception and decision making. Research activities will extend current knowledge about the theoretical validity and reliability of the conceptualization of risk modeled in the Simplified Conjoint Expected Risk (SCER) model of Holtgrave and Weber across different ethnic and cultural groups. The research will modify and pilot test the survey instrument used by Holtgrave and Weber in a group of white individuals with known characteristics. The results of this analysis will be used as evidence regarding the theoretical validity of this conceptualization of risk perception for white individuals, and provide a source for comparison with other ethnic and cultural groups. The research will also identify theoretically valid and reliable measures of group membership (for ethnicity, culture, and level of acculturation) to be used in the subsequent cross-cultural research. The initial research site, Los Angeles/Orange County, is optimal for cross-cultural research because there are many different ethnic and cultural groups, e.g., African-Americans, Latinos (Chicanos, recent immigrants from Mexico), Asians (Vietnamese, Cambodians, Japanese, Chinese), living in this region.